I-Corps: An Advanced Analytics Platform for Personalized Treatment

The broader impact/commercial potential of this I-Corps project is to revolutionize the current approach to decision-making processes in disease treatment. The project will help transform how patients, their families, and healthcare providers navigate the complex landscape of disease treatment options. It aspires to empower these stakeholders with personalized, data-driven treatment recommendations, considering a comprehensive set of individual patient attributes and real-world variables such as the location, budget, and insurance details. By making disease treatment more personalized and efficient, the project is poised to significantly improve treatment outcomes and reduce healthcare costs. Furthermore, its commercial potential is substantial, given the growing need for personalized healthcare solutions and the rise of artificial intelligence-powered applications in healthcare.

This I-Corps project is based on the development of artificial intelligence-powered platform that provides personalized disease treatment recommendations. The innovation lies in leveraging advanced machine learning algorithms to analyze a wide array of patient-specific and disease-specific data, leading to more accurate treatment suggestions tailored to each individual patient's unique circumstances and features. The project aims to address the problem of overwhelming and often confusing treatment options by providing clear, data-backed suggestions via the developed platform. By doing so, it offers an opportunity to enhance the treatment decision-making process and ultimately improve the quality of patient care.